Retrofit Strategies for Non-Ductile Reinforced Concrete Flat-Slab Buildings

Non-ductile flat-slab buildings are susceptible to severe damage and possibly collapse during earthquakes of moderate intensity. The central and eastern regions of the United States have a large inventory of such buildings. Progressive collapse can result from punching failure at connections. The main objective of the project is to develop minimum-retrofit strategies to limit the global response and ensure structural integrity during moderate ground motion. To accomplish this, a suitable analysis tool for predicting the response of non- ductile flat-slab buildings under earthquake loading will be developed first. A recently developed three-parameter hysteretic model will be incorporated into an existingnonlinear dynamic analysis program to analyze and compare various retrofit strategies. Experiments aiming at testing retrofit schemes at the connection level for protection against progressive collapse and controlled redistribution of loads will also be carried out. In particular, the concept of using infill walls to improve the lateral load resistance will be studied in some detail. With both experimental and analytical studies, this project is expected to provide an integrated retrofit strategy optimized for a balance between protection at the connection level and a controlled global response. This project is supported under the NSF Research Initiative No. 92-28 on "Repair and Rehabilitation Research for Seismic Resistance of Structures."